Gordon Research Conference on Solid State Chemistry; Brewster Academy; Wolfesboro, NH; July 17 - 22, 1994

9418277 Storm This Gordon Research Conference on Solid State Chemistry will bring together solid state chemists and materials research and development scientists from around the world with the express purpose of improving contact and communication among industrial, government, and academic researchers. The topics and speakers that have been selected are at the forefront of the field of solid-state chemistry and range from solid state synthesis and characterization to topics of high technological impact such as microporous solids and nonlinear optical materials for communications. This award will provide for the support of graduate students and young faculty to give them an opportunity to participate in discussions with leaders in the field of solid-state chemistry. ***